Thirteenth International Workshop on Operator Theory and Applications (IWOTA2002), August 6-9, 2002, Blacksburg, Virginia

0126746
Ball

The International Workshop on Operator Theory and Applications
(IWOTA) has been held biannually since 1981 and more frequently in
recent years (starting in 1995) in eight countries in North America, Europe
and Asia. The IWOTA conferences offer a rich program on a wide range
of the latest developments in operator theory and its applications. In a
combination of plenary lectures by eminent mathematicians and parallel
sessions of invited and contributed talks, the plan is for this year's
conference (to be held August 6-9, 2002 on the Virginia Tech campus in
Blacksburg, Virginia) to cover a wide range of topics, including
operator/system theory, operator/scattering theory, operator
theory/numerical analysis, operator theory/wavelets and signal processing,
operator theory/harmonic analysis as well as topics in Krein space
operator theory and core engineering. These topics form a core of the
basic science behind a variety of applications, including control of
industrial processes or high performance aircraft, tomography and image
reconstruction, pulse propagation in optical fibers, seismology, data
compression and reconstruction, and identification of only approximately
known parameters.

The original concept of IWOTA was as a satellite conference for operator
theorists to the broader based international symposium on Mathematical
Theory of Networks and Systems (MTNS), to be held August 12-16, 2002
at the University of Notre Dame. While this concept is still in place, the
scope of IWOTA has broadened considerably in recent years and IWOTA
has now attained an independent identity as a world-wide conference for
recent developments in core operator theory and its applications. IWOTA's
primary objective is to bring together major researchers in the area of
operator theory and related fields. These meetings provide opportunities
for all participants to present their own work in contributed talks, to
interact with other researchers from around the globe, and to broaden their
knowledge of the field by hearing the invited lectures of eminent
mathematicians. In addition IWOTA emphasizes cross-disciplinary
interaction among mathematicians, electrical engineers and mathematical
physicists, and encourages participants to continue on to the MTNS
conference for a further broader interdisciplinary interaction. In addition,
IWOTA encourages and financially supports the participation of young
researchers, i.e., advanced graduate students and recent Ph.D. recipients,
for whom the opportunities offered by expert conferences are particularly
important